East Asia Summer Institutes-Korea: Intelligent Sensor Systems for Robotic Applications

0313884
Lee

This award supports planning and development of U.S.-Korea research cooperation in the area of intelligent sensor systems for robotic applications. Dr. Sooyong Lee of Texas A&M University will facilitate the participation of five American graduate students in the East Asia Summer Institute- Korea program. Each of the students will work during the summer in a Korean laboratory, thus gaining international research experience and setting the stage for future research collaborations.